Experimental Elementary Particle Physics with Colliding Beams

In this proposal, a group of researchers from Notre Dame University request support for continued participation in the DO experiment at Fermilab, and to participate in a new experiment - CMS at the LHC at CERN. The DO experiment is undergoing an upgrade to continue its exploration of the highest energy collisions, and this will, in 2005, be followed by a new high-energy frontier, at the LHC. The group's detector expertise is in fiber-optic tracking and optical readout. LHC education and outreach activities have been led by members of this group. The CMS experiment at the LHC at CERN, expected to explore the Higg's boson and possibly discover the first set of supersymmetric particles, will be the major future activity of this group.